CAREER: An Adaptive Ecosystem for Distributed Transaction Processing in Untrustworthy Environments

Every day, enormous amounts of data are shared across thousands of computers managed by organizations that may not fully trust one another. These systems can fail, get attacked, or become overloaded, making it hard to keep data accurate and available. This project builds an adaptive system that automatically adjusts how it handles data depending on conditions. The system learns which strategies work best for organizing, storing, and agreeing on data across multiple computers, ensuring everything runs quickly and reliably even in unpredictable environments.

This project develops an adaptive ecosystem for processing distributed transactions in untrustworthy environments. The research is organized into three thrusts. Thrust 1 focuses on developing an adaptive BFT Consensus protocol that leverages reinforcement learning to quickly adapt to changes in workload patterns, adversarial behaviors, and network conditions. Thrust 2 addresses vertical adaptivity, enabling the system to adjust its internal components, such as hardware resource management and transaction management paradigms. Thrust 3 targets horizontal adaptivity, covering data sharding strategies, node clustering, and cross-cluster communication to optimize performance across the full system.

This research has the potential for substantial industry and societal impact, as it aims to significantly improve the resilience, reliability, and performance of large-scale data management systems, currently foundational to modern computing infrastructures. The project integrates research outcomes into educational curricula at Stony Brook University, expanding course offerings in data management and distributed systems. Undergraduate students will be actively involved in research, fostering early engagement in these critical fields. The project also contributes to reskilling the United States workforce by building expertise in distributed systems and artificial intelligence. Through outreach efforts, the project aims to inspire the next generation of computer scientists and increase participation in computing disciplines.